Conference on Quantum Information Science

The proposed conference will bring together people working in the two areas, including
leading experts in the both fields, in order to explore the possibility of transferring the
knowledge accumulated in quantum many-body physics into the area of quantum
algorithms and back, and also to attract more physicists to the problem of quantum
computation.

Intellectual Merit
The merits of holding this conference are determined by the revolutionary role of
quantum computing, which should provide means for solving problems that may not be
solved with ordinary computers. New breakthroughs in quantum computing are expected
from exchange of ideas and results obtained in relevant areas of classical and quantum
computational algorithms and quantum many-body physics, which is closely related to
quantum computing. In turn, the fast progress in quantum computing should significantly
enrich many-body physics and lead to new technologies.

Broader Impact
The broader impact of the conference comes from its truly interdisciplinary scope. Bringing
together world-leading experts in computer science and physics should dramatically
extend the scope of the studies on quantum computing and attract more scientists to this
area. Participation of students and postdoctoral research associates will help disseminate
the knowledge among younger generation of scientists.